Develop Strategies for Informal Science Educational Programming and Public Involvement in Research at the Hacienda La Esperanza Nature Reserve in Manati, Puerto Rico

The Conservation Trust of Puerto Rico will plan a program of broad public involvement in education about the Trust's ecological and anthropological research and land management activities at the Hacienda La Esperanza Nature Reserve. The planning activity will bring together internal and external teams of scientists, informal science education program developers, citizen science practitioners and citizens. With strong visitor studies input, the teams will plan and test approaches to interpreting the natural and cultural history of Puerto Rico's premier nature reserve.